The Mathematics Center: A Comprehensive Mathematics LearningEnvironment

A Mathematics Center consisting of a laboratory equipped with IBM PS/2 computers running Derive, GyroGraphics, and Minitab provides for changes in the teaching and learning of mathematics by emphasizing a comprehensive, state-of-the-art, interactive learning environment. Students are able to analyze, visualize,